Oceanographic Technical Services, Woods Hole Oceanographic Institution, 2018-2022

Woods Hole Oceanographic Institution (WHOI) proposes to support technical services on R/V Atlantis, a 274’ general purpose research vessel and R/V Armstrong, a new 238’ multidisciplinary vessel. Both vessels are owned by the Navy and are operated by WHOI as part of the U.S. Academic Fleet which is scheduled by the University-National Oceanographic Laboratory System (UNOLS).

As part of their basic operations WHOI will provide two technicians on each seagoing research project, and will maintain, calibrate and provide for qualified users items from their pool of shared-use research instrumentation.

WHOI also proposes to provide several elements of specialized support for investigators, with separate charges. Specialized support requested for 2018 includes:
1) Support for Sea Education Association (SEA)
2) SATNAG
3) MISO
4) PFPE/Gravimeter
5) Sensor Calibration

Broader Impacts
The principal impact of the present proposal is under Merit Review Criterion 2 of the Proposal Guidelines (NSF 13-589). It provides infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.